BioQuest Woods: Linking Animals and Plants with Interactive Exhibits

9627030 Krakauer The North Carolina Museum of Life and Science will develop two areas in a new 70 acre outdoor exhibit "BioQuest Woods: Linking Animals and Plans with Interactive Exhibits". This concept is to pair live animals and plants in their natural setting with science center-style interactive exhibits to communicate key ideas in biology and physics. Support will go to sixteen interactive stations in two four-acre theme areas "Catch the Wind" and "Down to Earth". "Catch the Wind" will assist visitors in the exploration air movement and learning about how plants and animals use air in specialized ways. For example, visitors will experiment with air thermals while observing the behavior of birds of prey and will learn how prairie dogs exploit the venturi effect to ventilate their burrows. In the "Down to Earth" thematic area, visitors, simulate the activities of field biologists, will track bears equipped with radio collars, examine living invertebrates, among other activities. Scientific instruments, including microscopes, in kiosks will aid on-the-scene study of live animals and plans. "BioQuest Woods" will help visitors, teachers and students gain the realistic experience of scientific inquiry in a natural setting. Education programming will highlight curriculum linkages and fulfills the goals of North Carolina's new science curriculum. It directly addresses the State's competency-based goals requiring understanding of natural systems and the interrelations of the basic sciences. Pre and post-visit materials will be developed along with teacher guides and enhancement activities. This project is being developed with the cooperation of the Austin Nature Center, the National Zoo, and the Indianapolis Zoo.